Purchase of an X-Ray Diffraction Facility

The technique of X-ray crystallography is a powerful tool for the determination of the molecular structure of compounds as diverse as small polypeptides and complex metal clusters. When combined with the latest computer software, the technique is becoming remarkably easy to put into practice. Access to X-ray crystallographic instrumentation markedly improves the ability of chemists to carry out frontier research. The Department of Chemistry at Vanderbilt University will use this award from the Chemical Instrumentation Program to help acquire an X-ray diffractometer. The areas of chemical research that will be enhanced by the acquisition are as follows: 1) Preparation and study of the structure and reactivity of novel hypervalent species 2) Dinuclear compounds containing bridging hydrocarbon ligands with unusual photochemical reactivity 3) Preparation and structure determination of novel main-group heterocycles 4) Organic charge transfer complexes and the study of intramolecular electron transfer in bifunctional organic molecules 5) Lewis acidic Organoalkaline-earth compounds containing sterically bulky ligands 6) Structure and reactivity of homoleptic transition metal alkyl complexes.